Mathematical Sciences: Geometric Twist Maps

9400295 Gutkin The research covers topics related to the geometric twist maps arising from the classical study of the 3-body problem. This will be studied in relationship to the geometry of billiard configurations in dynamical systems. The dual billiard problem will also be investigated. The research has potential applications to Hamiltonian mechanics and statistical physics. ***